Addition of Tandem Mass Spectrometry to the Middle Atlantic Mass Spectrometry Facility for the Analysis of Complex Biomolecules

This is a Biological Facilities Center request for the purchase and developmental support of a tandem mass spectrometer, or MS/MS, to be used as a shared instrumental facility and as part of the Middle Atlantic Mass Spectrometry Facility. The instrument, to be located on the Baltimore County campus of the University of Maryland, will supplement existing capabilities available at the MAMS Facility at the Johns Hopkins University. Core and collaborative research by the principal investigators and their staff will include both instrument development and applications to the analysis of complex biomolecules. Instrument development will focus on improving the yield of fragment ion information for larger molecules using both collisions and laser photodissociation in the field.free region between MSl and MS2. Multiple collisions will be employed to induce fragmentation,neutralize molecular and fragment ions and equilibrate ion kinetic and internal energy. Fragment ions will then bereionized by chemical ionization and permit quadratic B scans in the second mass spectrometer at higher resolution than the B/Escans normally employed for high.energy collisions. MS/MS will be used to induce structural fragmentation, improve the sample ion signal relative to matrix ions, distinguish fragment ions formed from several molecular ion species, and separate components of microheterogeneous and other mixtures not readily separable by liquid chromatographic techniques. These advantages will be exploited for the structural analyses ofglycopeptides, lipopolysaccharides, chemically and post. translationally modified peptides, synthetic nucleotides, etc. in ongoing collaborative projects at the facility.